Role of Olfactory and Acoustic Information in the Communication of Food Location by Stingless Bees (Genus Melipona)

LAY ABSTRACT
Role of olfactory and acoustic information in the communication of food
location by stingless bees (genus Melipona)
James C. Nieh
NSF Award 0316697
Successful foragers of highly social insects commonly communicate the location
of good food sources to other colony members. In honeybees, such location
communication can occur through the waggle dance, famous because
honeybees encode the distance and direction to a resource in the waggle dance
(referential communication). This degree of directional information is only
matched by human language. Aside from honeybees, the tropical stingless bees
are the only highly social bees, and both groups are closely related. Several
authors have therefore made preliminary studies to see if stingless bees also
have a similar ability to encode and communicate food location. Previously, the
P.I. discovered that one species of stingless bee can communicate 3D food
location and may encode distance and height in sound pulses. Through this
grant, the P.I. will determine, in detail, the role of odor and sound in this
communication system. He will also begin playback experiments designed to test
whether bees can use acoustic information to find a food source at specific 3D
location. This research will increase our understanding of sophisticated animal
communication by exploring a new model of referential communication, the
stingless bees.